Seeing in the Dark

"Seeing in the Dark" will be a prime-time PBS special about stargazing -- described in the proposal as "the interaction between starlight and human beings who have a look for the love of it, whether just learning the constellations or doing amateur astronomy so advanced that it sometimes rivals professional research." The project teaches "hands-on" astronomy drawing heavily on new technology (large, inexpensive "Dobsonian" telescopes; charged-coupled light-sensing devices [CCDs}; and the Internet) that make astronomical observing practical for millions to whom it has previously been at best a remote possibility. The video will be supported by an extensive outreach effort that includes informal, family projects and formal, in-class exercises. The Astronomical Society of the Pacific will be a major outreach partner. There also is a companion book, "Seeing in the Dark," published by Simon & Schuster.